ITR: Formal Methods Education and Programming Effectiveness: Are They Related?

EIA-0082849
Page, Rex
University of Oklahoma

ITR: Formal Methods Education and Programming Effectiveness: Are They
Related?

Software is often laced with coding errors which result in loss of life and
productivity. These problems have been addressed by improved tools,
disciplined processes, more effective design and analysis, and software
product inspections. This research addresses the problem through better
education. This work seeks evidence for the integration of mathematical
reasoning in computing education as leading to improved programming skills.
The project will measure and compare the programming effectiveness of two
cohorts: one that studies core concepts of mathematical reasoning within
the context of programming and another studying these core concepts in a
pure mathematical context. The comparison measure of programming skills
will be software development projects in a subsequent course. Learning
more about any relationships between programming ability and mathematical
reasoning can be an important step in improving curricula that educate
students for the critical information technology positions of the future